Research on Rapid Prototyping Systems Using Field Programmable Devices

Rapid prototyping systems composed of programmable gate arrays present many technical challenges affecting system utilization and performance. The objective of this research is the development of engineering methodologies which address these currently unresolved technical issues. Current rapid prototyping systems suffer several shortcomings, including engineering bottlenecks caused by time- consuming mapping processes, inadequate performance for real-time emulation of high-speed systems, and high cost resulting from poor system utilization due to the severe IO limit of programmable devices. The proposed research targets these key areas. Both hardware and CAD algorithm issues will be addressed. The proposed project will contribute to identify the bottlenecks of current prototyping systems and discovering novel solutions. This research will contribute to faster mapping processes, low cost - high utilization systems, and real-time emulation.